Mathematical Sciences: Bifurcation of Periodic and Homoclinic Orbits

This is the second year of a three year continuation. The PI transfered from Michigan State University to Georgia Tech Reserarch Corporation. The original abstract is still valid.